MGR Honorable Mention: Joseph D. Torrez

This special award will give Ph.D. student Joseph D. Torrez additional flexibility in pursuing his graduate studies and research initiation in experimental psychology. This award will strengthen minority participation in research in this area.